Cavity Filling Simulation with Experimental Verfication

Cavity filling in die casting represents an example of free surface fluid flow that is important in manufacturing. The investigators have developed a new method for the numerical simulation of transient, two-dimensional, incompressible, free surface fluid flow that introduces the use of surface markers and micro cells. In this project, the validity of this new simulation method will be demonstrated by comparisons of numerical solutions with real fluid behavior. The cavity filling simulation will be extended to include heat transfer and temperature dependent viscosity effects and to include surface tension and to accommodate curvilinear geometry. The extended simulation will be used in conjunction with the existing simulation and the flow visualization results to investigate the influence of heat transfer, temperature dependent viscosity, and surface tension on cavity filling.